NSF Student Travel Grant for the 2022 to 2024 ACM SIGPLAN Conferences on Systems, Programming, Languages and Applications: Software for Humanity (SPLASH)

A Programming Languages Mentoring Workshop (PLMW) is being organized as an annual satellite workshop in each edition of the 2022--2024 ACM SIGPLAN Conferences on Systems, Programming, Languages and Applications: Software for Humanity (SPLASH). SPLASH is a premier forum that brings together researchers working on foundations and applications of programming languages and software engineering. This award specifically supports students from underrepresented groups and gives priority to US citizens and permanent residents to attend the mentoring workshops in addition to the several conferences held under the SPLASH umbrella. The impact of the award relates to broadening participation in computing, providing opportunities for students to receive mentoring from leading researchers, and building the next generation of researchers and knowledgeable practitioners in programming languages and programming systems research.